Engineering Research Equipment Grant: Mechanical Spectrometer

A mechanical spectrometer is to be utilized in the character- ization of the rheological properties of non-Newtonian fluids with complex constitutive behavior. The equipment is a key element in a broadly based research program on viscoelastic polymer melts and solutions.